The Northeast Center for Telecommunications Technologies

The Northeast Center for Telecommunications Technology (NCTT) has led the development of work-relevant, industry-validated, competency-based curricula and instructional materials for use in secondary through community college programs in telecommunications technology. NCTT has designed and implemented an innovative instructional delivery system that takes advantage of current electronic technologies and has provided extensive opportunities for professional development of faculty, and for the education both of students and of incumbent workers in the telecommunications industry. These accomplishments are due to extensive and successful partnerships with educational institutions and with industry.

The goals for the Center are:
(a) to establish the modular curriculum system as one of the key elements that leads to the ongoing success and utility of the technicians in the workplace;
(b) to provide faculty with integrated, accessible and relevant professional growth opportunities;
(c) to encourage all learners, but especially those underrepresented in the workplace, into educational programs that lead to participation in the telecommunications workplace; and
(d) to ensure that the quality and relevancy of its goods and services provide resources to maintain the NCTT as a permanent center in telecommunications and related technologies.